Computer Science & Information Technology Scholarships

The Rocky Mountain College Access and Success in Computer Science Project is awarding scholarships to students pursuing Computer Science and Information Technology who demonstrate both academic potential and financial need. Special emphasis is being given to recruiting from American Indians and women. Scholars are making use of two campus programs, Students for Academic Success and American Indian Affairs, which are designed to assist students from small rural communities and reservations in adapting to, and succeeding in, college. The project is making an impact in undergraduate computer science education in the mountain states.